LTER: The Changing Nature of Cities: Ecological and Social Dynamics in the Minneapolis-St. Paul Urban Ecosystem

While cities often conjure images of buildings, parking lots, and streets, they are also home to many kinds of nature, in parks, yards, gardens, lakes, streams, and the like. This varied urban nature is important habitat for many types of plants and wildlife, and is affected by a variety of stressors, ranging from toxic pollutants, to pests, habitat fragmentation, and changing environments. Urban nature, in all its diversity, is also critically important to urban residents, providing numerous potential benefits, ranging from aesthetic and health-related, to climate control and recreational opportunities. This project will explore how urban residents and urban nature interact with one another and respond to ongoing rapid environmental change. The ultimate goal is to figure out ways that environmental outcomes can be improved for all people living in the city. Researchers will work with education specialists from the Bell Museum to help middle school students and teachers learn and teach about science, using their own schoolyards as natural classrooms. Researchers will also nurture new university-community partnerships to better understand the factors contributing to imbalances in human relationships with urban nature and to learn about approaches to address those imbalances.

The Minneapolis-St. Paul (MSP) Urban Long-Term Ecological Research Program (LTER) aims to determine the long-term coupled dynamics of urban nature and the urban social system in the face of rapid environmental and social change. The project examines this coupling across organizational scales of urban nature from diverse organisms in habitat patches, to stream and stormwater drainage networks, to landscapes with abundant surface water. The project likewise examines human-nature coupling at multiple scales in the urban social system, from diverse individuals acting in groups in numerous municipalities to complex governance systems and institutions at the metropolitan region. Specifically, the research addresses how biodiversity at the organism to habitat patch scales, and habitat fragmentation and connectivity mediate long-term responses of ecological structure and function to urban stressors such as toxins, pests, pathogens, and climate change. Researchers will determine how ecological, hydrological, and climate processes of urban nature create benefits and burdens for diverse human communities over time, and in turn how governance, policy, and practice can change to improve decisions about urban nature. Finally, the project will explore how the long-term process of growing partnerships for knowledge creation and practice can change scientific and community outcomes in the urban ecosystem. By advancing understanding of how pollutants, biodiversity, land cover, habitat fragmentation, and drainage network properties affect urban nature processes in the face of environmental and social change, research will test whether ecological theories developed in non-urban ecosystems can predict patterns and processes in highly modified and managed urban systems. The project will shed light on patterns of imbalances in human relationships with urban nature and how such disparities are addressed through institutional and policy change with long-term research.